AF: Small: Advancing the Graph Optimization Toolkit

Graphs or networks are a common way of modeling pairwise relationships. They model communication networks, transportation networks, social networks, financial networks, data interactions, and more. Correspondingly, efficient methods for processing and extracting information from large graphs can have numerous applications. Moreover, efficiency improvements for these problems can lead to valuable savings in time, energy, and other precious resources associated with large-scale computing. The central goal of this project is to make new mathematical insights and discoveries associated with obtaining such efficiency gains. This project will support researchers pursuing breakthrough progress on open problems regarding the limits of efficient computing and on making the resulting tools broadly accessible and available.

More concretely, the focus of this project will be on advancing the theoretical foundations for optimizing over graph-theoretic objects (e.g., matchings, cuts, flows, and random walks). The project will seek to develop new algorithms, analytical tools, optimization methods, and data structures for solving such fundamental graph optimization problems with provable efficiency guarantees. Motivated by constraints in large-scale computing, this project seeks to improve the efficiency of solving prominent graph optimization problems with respect to key efficiency measures (e.g., time, parallelism, and space usage). Researchers on the project will work to combine and advance techniques across multiple disciplines, e.g., theoretical computer science, scientific computing, operations research, and mathematics, to make substantial progress on such foundational graph optimization problems.